'Attracting New Neighbors' -- A Planning Grant

9619501 Hotchkiss The Zoological Society of Florida and Miami Metrozoo will use this award to plan their strategy for "Attracting New Neighbors". During their planning activities they will address issues involved in attracting the traditionally underserved and large Hispanic population of Dade County, Florida to the educational programs of the zoo. The planning grant will support 1) audience research within Dade County, 2) a national study to see what others have done to attract diverse audiences, 3) a three-day invitational planning conference, 4) site visits and focused research by Metrozoo staff on attracting a diverse audience, and 5) dissemination of the information about marketing strategies and programming techniques developed during the planning activities to zoos and science museums across the country. The planning process will culminate in the development of a long-range exhibition, educational program, and marketing plan for the zoo's new Education Court scheduled to open in 1998.